Spring Topology and Dynamics Conference 2002, at the University of Texas at Austin on March 21-23, 2002

DMS-0129227
Cameron M. Gordon

The Department of Mathematics at the University of Texas
at Austin will host the 2002 Spring Topology and Dynamics
Conference. Now in its 36th year, this is the largest annual
topology conference in the US. It has a broad scope that
encompasses set-theoretic and general topology, continuum
theory and dynamical systems, geometric group theory and
geometric topology. It thus provides a unique forum for
researchers in a wide range of disciplines within topology.
There will be eight invited plenary one-hour lectures of a semi-expository nature, given by leading researchers in the
areas covered. There will also be twenty invited half-hour
lectures, together with 15-minute contributed talks, held in
four parallel sessions. The invited speakers have been
selected with the help of an advisory committee of experts
in the various subfields.

Topology is one of the major subdisciplines of mathematics,
and, at just over a hundred years old, the youngest. It
originated with Henri Poincare around 1900, who introduced
it as a means of describing the qualitative behavior of
certain physical systems (for example, our solar system),
whose complexity renders a precise quantitative analysis
too difficult. The wide range covered by the subject today
is well represented by the Conference. General topology deals
with the abstract properties of topological spaces; set-theoretic
topology impinges upon the logical foundations of mathematics.
The study of dynamical systems is close to Poincare's original motivation, and deals with the behavior of various iterative
processes. These often give rise to complex objects, continua,
which are studied in their own right. Geometric topology
deals with manifolds, objects which are locally like
n-dimensional Euclidean space, but whose global structure
might be quite complicated. For instance, there is a lot
of current activity in 3-dimensional topology, whose goal is
essentially to describe all theoretically possible
3-dimensional universes. Rich connections have recently
been discovered between this subject and quantum physics,
while on the other hand topological techniques from the
theory of knots in 3-dimensional space have recently
been applied to the study of DNA. Finally, geometric
group theory, a relatively new subject, studies groups,
which are algebraic objects, from a topological point of view;
this is leading to deep connections between topology and
algebra. The interaction at the Conference between workers
in all these different branches of topology is expected to
be very fruitful.